Videotape-Computer-Assisted Introductory Laboratory for Physics

The Physics Department at SUNY College at Buffalo will develop a videotape-computer assisted laboratory in mechanics and wave motion for students in introductory physics. This novel laboratory experience (which involves videotaping physics laboratory experiments and "real world" experiments that cannot be directly performed in the classroom) will allow the student to gather data and to learn at his or her own rate in an interactive mode. The equipment consists of Macintosh computers, video cameras, and recorders. Students will make detailed measurements on successive video frames using the computer and analyse the motion which has been recorded. It is expected that this project will enable students to better appreciate and learn physics.